Engineering Research Equipment Grant: Structural Dynamics/ Analyzer

A structural dynamics analyzer is obtained for research at the Oklahoma State University. It is used for four current research projects: modal analysis of small mechanisms, modal analysis of a rotor bearing system under seismic loading, vibration of heat exchanger tubes on multiple supports/vibration in tube bundles and flow-induced vibrations, and web handling dynamics including acoustic emission signature and vibration noise control.